Conference Travel Funding: "Invariant Theory and its Interactions with Related Fields"

Abstract

Award: DMS-0309788
Principal Investigator: Kathryn Lesh

This award will provide funding to partially defray travel
expenses of U.S.-based mathematicians attending the conference
"Invariant Theory and its Interactions with Related Fields"
(Ingo2003), to be held in Goettingen, Germany, March 23-29,
2003. Invariant theory, with roots in the 17th century, has
proven to be a robust area of mathematical endeavor. Over the
course of the last 50 years, it has found new applications in
algebraic topology, representation theory, algebraic geometry, as
well as many traditional areas such as number theory and
commutative algebra. Professor Lesh is on the scientific
organizing committee for Ingo2003, which is an initiative of
research groups in Aberdeen, Manchester, and Goettingen working
in the areas of algebraic topology, representation theory, and
commutative algebra. These scientists have found that
communication across narrow specialty boundaries can bring great
scientific benefits. A central theme of the conference will be
the many connections of invariant theory to other fields. In the
past, conferences organized around the topic of invariant theory
have tended to be rather specialized, for example, concentrating
on computational aspects, or emphasizing interaction with at most
one other subject area, such as algebraic topology. Ingo2003 is
being organized with a much broader scientific base and will be
interdisciplinary in a global sense, as well as having a specific
focus on younger researchers. Some of the topics represented in
discussions will be modular representation theory, coinvariants
and the "hit problem," algebraic topology, and Hasse-Schmidt
differentials and differential Galois theory.

One aspect of invariant theory is studying the question of what
elements of a changing situation must in fact remain fixed. For
example, the points along the axis of a spinning globe remain in
the same position as the globe turns. The point at the center of
the spindle of a tape player stays fixed while other points on
the spindle turn around it. More surprisingly, rotating a circle
around its center and then flipping the circle over any line
through its center must leave a different line in a fixed
position. The search for such "invariant" or "fixed" elements of
a situation can be very subtle, and it arises in a wide variety
of mathematical problems and physical applications. The goal of
the Ingo2003 conference is to allow mathematicians from differing
mathematical disciplines to learn techniques from each other, and
to disseminate sets of mathematical tools developed in one
discipline to other disciplines that might find them useful.